CCF: AF: Student Travel Support for the IEEE Conference on Computational Complexity 2013

This award supports student attendance at the IEEE Conference on Computational Complexity (CCC), June 4-7, 2013, in Palo Alto, California.